Engineering Research Equipment Grant: Four-Beam Two-Color Laser Doppler Anemometer System

The addition of a two-color laser anemometer will provide an instantaneous vectorial measurement of velocity in experiments where single velocity components are inadequate to describe the phenomenon of interest. Such are acoustically-driven pulsed combustion, "momentumless" wakes of symmetrical objects and the intensification of fly ash agglomeration by acoustic fields. The relevance of this research to industrial design goals is substantial. Better control of combustion, especially in unsteady flows, will yield better efficiency in propulsion or heating devices, with an enhanced capability to condense dangerous or troublesome by-products (fly ash). Funding of $57,150 is recommended, to be cost-shared by an additional $57,150 from Pennsylvania State University.